Acquisition of Mass Spectrometers for a University Facility

This award from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation (MRI) Programs will assist the Department of Chemistry at the University of California in Riverside acquire a Mass Spectrometer. This equipment will enhance research in a number of areas including 1) entomology and neurosciences pertaining to the biochemistry of peptide and protein signaling molecules, specifically the identification and characterization of venom toxins; 2) hormones involved in regulation of insect ecdysis; 3) biochemical studies of the mechanism by which the proteasome enzyme complex sequesters and cleaves denatured proteins; 3) the chemistry of bifunctional catalysis: enhancing nucleophilic catalysts by intramolecular lewis acid activation; 4) characterization of well-defined and high-dimensional monomers, oligomers & polymers; 5) the chemistry of amino acid sidechain exchange in proteins; 6) synthesis, structural and biological studies of biomedically significant natural products; 7) interaction of heparin with peptides; 8) sulfur chemistry: fullerenes & oligomeric fullerenes; 9) identification of gene products involved in plant responses to low oxygen stress; 10) environmental toxicology: identification of peptides associated with hepatocyte nuclear factor 4; 11) characterization of alternative DNA and RNA structures; 12) identification of proteins phosphorylated in vivo by the p21-activated protein kinase g-PAK.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules.